FRG: Arakelov Theory and Modular Forms

FRG collaborative Award with lead DMS-0354353 of Ono, Zhang and Kudla with Co-PI Yang.

This project involves arithmetic geometry and number theory and
focuses on a systematic study of cycles on Shimura
varieties and applications. The fascination of diophantine problems -- the study of whole number
solutions of polynomial equations-- goes back to ancient times.
The mathematical techniques developed in the last 50 year to
attack such questions have lead to significant advances in our knowledge
of this subject, for example the proof of Fermat's last theorem.
These same tools have, meanwhile, proved to be of great importance
in cryptography, the construction of new algorithms for computer science
and new error correcting codes for electronics.
Shimura varieties are the geometric objects
associated to systems of diophantine equations
with a great degree of symmetry. Their diophantine
properties have deep connection with many important parts of mathematics.

An extensive study will be made of the arithmetic geometry of
cycles on Shimura varieties, with an emphasis on the interaction
of their heights, arithmetic intersections and density properties
with modular forms and special values of L-functions and their
derivatives. Applications will be made to Gauss's class number
problem, equidistribution problems for cycles on Shimura
varieties, and the Andre-Oort conjecture, and the Tate and Bloch-Beilinson
conjectures. This collaborative project will take
advantage of recent developments including nonvanishing properties
of Fourier coefficients of modular forms,
the theory of Borcherds forms and their connections with theta
functions, and integral representations of Langlands L-functions.
A long range goal of the project is to establish relations
between the height pairings, periods, and algebraic cycles and the
derivatives of L-functions.